Research in Intermediate Energy Physics

This project addresses certain basic aspects of the electroweak and
strong interactions reflected in the properties of mesons and nucleons
(particles found inside atomic nuclei) and their interactions at low
energies. The strong and weak interactions are responsible for the
structure of matter at the smallest known scale, a femtometer or less.
The research is motivated by the fact that the present comprehensive
theory--the Standard Model (SM)--is known to be incomplete.
Furthermore, the SM becomes unworkable for strong interactions at low
energies.

The rare beta decay of the pi-meson (pion), occurring once in about 100
million ordinary pion decays, provides a theoretically clean window to
certain possible extensions of the SM. The PIBETA
experiment, mounted at the Paul Scherrer Institute, Switzerland, by an
international collaboration of seven institutions led by the University
of Virginia (UVa) group, has already improved the accuracy of the pion
beta decay rate five-fold, from 4% to 0.8% in a series of measurements
from 1999 through 2001. Further improvement in precision, down to about
0.5%, is forthcoming in the next year or two through improved data
analysis. All other rare decay channels of the pion and the muon have
been similarly improved in precision. An important anomaly was
discovered in our pion radiative decay data, prompting a new, dedicated
measurement of this decay in 2004. After that, we plan to design a new
precise measurement of the Pi -> e nu decay, a process of profound
significance in determining whether or not nature treats the familiar
electron and its more massive cousin, the muon, in precisely the same
way. Even a small departure would signal new physics.

During the past five years this program has resulted in two doctoral
degrees at UVa plus three more at collaborating universities stemming
from the PIBETA project alone. Four more UVa Ph.D. degrees are expected
in the next two years. Each year typically one to two undergraduate
students are engaged in research on this project, thus gaining practical
laboratory experience.